NSF Young Investigator Award

A multidisciplinary program of synthesis, processing and characterization of new quantum-confined semiconductor quantum dot materials is underway. This program establishes a novel, non- equilibrium path for the preparation of size selected quantum dots of arbitrary composition in a variety of hosts.